Conference on Geometric Analysis: Present and Future; Cambridge, MA, August 2008

Abstract

Award: DMS-0706214
Principal Investigator: Lizhen Ji

This award provides partial support for six days of meetings in
Cambridge, Massachusetts during late summer 2008 on geometric
analysis and related fields. The conference aims to develop a
comprehensive overview of the present status and future
directions of geometric analysis and its connections to many
areas including algebraic geometry, analysis, topology,
mathematical physics, and string theory.

The occasion for this large conference on geometric analysis and
related geometric subjects is the sixtieth birthday of Shing-Tung
Yau, one of the leaders in the area. Geometric analysis is a
marriage of geometric problems and ideas, which often concern
properties of geometric spaces on large scales, with analytic
techniques that begin with small-scale features of geometry and
sometimes allow us to extrapolate those to large-scale
statements. Two of the great successes of geometric analysis are
the Calabi Conjecture, settled by Yau in the 1970s and later
found to be a key to the development of string theory, and the
Poincare Conjecture, a celebrated problem that was open for more
than one hundred years before its resolution just a few years ago
by G. Perelman, who brought to maturity a program launched in the
1980s by R. Hamilton. Many of the results and techniques
developed over the last thirty years in geometric analysis and
differential geometry were essential to the proof of the Poincare
Conjecture, and the ideas contributed to the problem by Perelman
have set off worldwide activity on new questions in geometric
analysis. For more information see the conference web site,
http://pamq.henu.edu.cn/add/Yau/index.html.